SBIR Phase I: Material Processing for Optimizing the Performance of an Embedded Bragg Grating

This Small Business Innovation Research Phase I program will determine the feasibility of actively controlling the spectral properties of Bragg gratings embedded in nonlinear optical waveguide devices. The key innovation in this work is the application of an external field to control the embedded Bragg grating. Preliminary calculations indicate that tuning ranges of 1 nm should be possible with rates as high as 10GHz. To fully realize the potential of the electro-optically controlled Bragg grating, an investigation of the effect that different processing conditions have on the spectral properties of the grating will be made. The ability to incorporate an electro-optically tunable Bragg grating with a particular set of spectral characteristics into a standard nonlinear optical material such as ion-modified potassium titanyl phosphate will greatly expand the functionality of the material and enable a broad range of new applications.

An electro-optically tunable Bragg grating will open the door to a broad range of applications, including direct high speed frequency modulation of diode lasers for wavelength division multiplexing (WDM), spectroscopy, and remote s